International Conference on Hyperbolic Problems: Theory, Numerics & Applications

This award supports participation in the International Conference on Hyperbolic Problems: Theory, Numerics & Applications, to be held at the University of Maryland, College Park, in June 2008.

The conference, the twelfth meeting in a bi-annual series, brings together researchers, students, and practitioners with interest in the theoretical, computational, and applied aspects of hyperbolic time-dependent problems. Topics of the conference include the study of nonlinear wave patterns in multiple dimensions, passage from microscopic to macroscopic in models for particle dynamics, theory and simulation of interfaces, and application of transport theory in complex environments including scattering in random media, biological applications, and traffic flow.

The organizers encourage participation by junior researchers and members of groups underrepresented in the mathematical sciences. The meeting provides an excellent opportunity for junior and senior participants to exchange ideas and to learn about recent research in emerging areas of theory, application, and numerical simulation connected with nonlinear hyperbolic evolution equations. Conference proceedings will be published.

Conference web site: http://hyp2008.umd.edu